Cohomology and Representation Theory: Algebraic Groups, Finite Groups and Lie Algebras

9800960 Nakano This award supports work on problems in the representation and cohomology theory of algebraic groups and related structures. These related structures include Lie algebras, infinitesimal group schemes, quantum groups, Schur algebras, symmetric groups and Hecke algebras. Many of the problems reduce to studying the representation theory for certain finite-dimensional algebras. These algebras are in general not semisimple so the fundamental representation questions involve determining the simple and projective modules, computing the composition factors of the projective modules, understanding the block theory and classifying the indecomposable modules. The principal investigator will also work on the use of geometric methods in the representation/cohomology theory for these related structures. The research supported concerns the representation theory of various algebraic objects including algebraic groups and Lie algebras. Representation theory is an important method for determining the structure of these objects. This work has implications for a number of areas of mathematics including ring theory, group theory, topology and the study of Lie algebras.